Penrose Conference on Transpressional Tectonics of Convergent Plate Margins

This action provides partial participant support for invited speakers and student attendees of a Penrose Conference on Transpressional Tectonics of Convergent Plate Margins to be held in Bellingham, Washington, August 24-30, 1990.